RIA: High Speed High Precision Signal Processing with Parallel Analog Circuits

This research deals with the development of high speed, high precision signal processing circuits using parallel analog circuitry. The ability of analog circuits to achieve high speed signal processing is well known. However, high speed has generally been achieved at the expense of low precision, making high speed analog circuits impractical for many important signal processing applications such as filtering and simulation. The low precision of high speed analog circuits results from the inability to control the physical properties of the devices, such as transistors and capacitors, that the circuits are constructed from. In this work, parallel circuits that achieve the required functionality independent of the device physics used are researched. These circuits are designed to perform a large variety of signal processing functions and are made very precise by high speed training after fabrication. Many parallel analog designs using CMOS devices are made to demonstrate the technique.